Research Experiences for Undergraduates in Chemistry at the University of Virginia

This Chemistry Division award supports a Research Experiences for Undergraduates (REU) site at the University of Virginia, where a previous REU site was funded for 1997-1999. James Demas is the site's Program Director; Milton Brown is the Co-Program Director. Eight faculty will serve as REU student mentors. During the award period (2001-2003), each year ten students will participate in a ten-week program. They will be recruited from institutions that do not offer Chemistry Ph.D. programs. Special efforts will be made to attract females and other underrepresented minority students. A combination of weekly meetings, interim talks and reports will serve to monitor the student's progress. The students will conclude their experience with a final written report and a talk presented at a mini-symposium.